Equipment: MRI: Track 1 Acquisition of an inductively coupled plasma mass spectrometer (ICP-MS) to strengthen interdisciplinary environmental research at American University

Elemental analysis is fundamental to advancing knowledge in Earth and environmental sciences. Through this award American University will acquire advanced instrumentation to address a wide range of research questions pertaining to better understanding pollution pathways and ecosystem health, with a focus on the Arctic. For example, studying trace metals in Arctic ecosystems from thawing permafrost helps to reveal the extent of contaminants affecting wildlife and Indigenous food sources. Being able to conduct detailed analyses across a range of sample types—from sediments and water to biological tissues—supports investigations into pollutant sources, and the impact of contaminants on ecological and human health. The instrumentation will be housed at American University, supporting collaborations with institutions across the Washington, D.C. area. Key objectives include expanding analytical capabilities, advancing community-based environmental monitoring initiatives in the Arctic, and enhancing STEM education and training by providing students with hands-on experience in elemental analysis.

Elemental analysis is fundamental to advancing knowledge in Earth and environmental sciences, as it provides detailed insights into the composition and distribution of trace elements and contaminants across ecosystems. Through this award American University will acquire an inductively coupled plasma mass spectrometer (ICP-MS) and microwave digestion system to address interdisciplinary research questions in marine ecology, environmental chemistry, urban stream ecology, and toxicology. The ICP-MS will support current and future research across a wide range of ecosystems, organisms, and subject areas. The expanded analytical capacity will enable new insights into: (1) heavy metals in Arctic marine mammals and seabirds, (2) toxic element release from thawing permafrost, (3) water quality impacts, (4) microplastics in urban road dust, (5) urban river geochemistry, (6) treated wastewater, (7) metal-organic frameworks, and (8) metal uptake in model organisms, among other studies. The instrumentation will be housed at American University, supporting collaborations with institutions across the Washington, D.C. area. Key objectives include expanding analytical capabilities, advancing community-based environmental monitoring initiatives in the Arctic, and enhancing STEM education and training by providing students with hands-on experience in elemental analysis.